Analyzing Real-Time Properties of Concurrent Programs

The creation of error-free software of any sort is a notoriously difficult activity. For real-time software systems, which must interact with the world in a timely fashion, the difficulties are even greater. Since these systems are often used in safety-critical applications, it is especially important that they be correct. The objective of this project is to create tools for the automated verification of various correctness properties of real-time programs. The goal is to guarantee rather than to test these properties probabilistically. Therefore, the development of formal models and analysis techniques is a major part of this research. This project defines techniques for controlling the state space explosion problem in reachability-based real-time analysis. Several techniques of this kind have been defined for (untimed) concurrency analysis. These techniques have yielded excellent experimental results, for instance, in the case of Petri-net-based deadlock detection in Ada programs. This project extends existing techniques for concurrency analysis to real-time analysis and defines new techniques for reducing state space size for real-time programs. The product is a set of software tools for the verification of real-time programs These tools would answer timing and other queries about programs written in a high level language, using the program source code and information about the timing properties of the underlying hardware.